A New Method for Synchronizing the Time of Networked Computers

ABSTRACT NCR-9416663 PI: Judah Levine University of Colorado "A New Method for Synchronizing the Time of Networked Computers" This is a four year project to continue investigation of new methods for synchronizing the time of networked computers. It includes work on server algorithms, statistical analysis programs and simple time client software. The effort is a continuation of a successful two year project the principal investigator is now completing.